Foreign Affairs Administrative Support (FAAS)

This is an interagency agreement between NSF and the Department of State (DOS) to reimburse DOS for the cost of administrative services provided to NSF staff stationed in Tokyo, Japan, and Paris, France. In addition, support is given to NSF travelers to Tokyo, Paris, Bangkok, and Tel Aviv. These costs are a necessary part of NSF's overseas activities.